Lifting the Fog: Russian Exploration in the North Pacific, 1728-1867

9903338
SMITH

The Anchorage Museum of History and Art will develop "Lifting the Fog: Russian Exploration in the North Pacific, 1728-1867." This exhibition will reveal the world of the naturalists, oceanographers, astronomers, cartographers, ethnographers and artists who first described the west coast of America and the northern Pacific Ocean to the world. Approximately 200,000 visitors to the museum will view the 5,300-sq. ft. exhibition. Public programs will complement the exhibition, including a family day, lecture series by marine biologists, living history programs, weekend workshops, and an international symposium. An illustrated catalog with interpretive essays and a school curriculum and teachers' guide will accompany the exhibition. The exhibition will travel to three additional venues in the United States.